Process Modeling for Wear and Breakage Detection in Metal Cutting

This research is aimed at detecting wear and breakage of cutting tools through the monitoring of cutting forces, even when the cutting variables (speed, feed, depth-of-cut) vary and the workpiece hardness changes during machining. A mathematical model of the machining process will be developed and stored in the control computer of the machine tool which will separate the wear and gbreakage effect on cutting forces from those of the other parameters, thus enabling the on-line detection of tool wear and breakage. The model will updated online as the machining progresses.